ALICE and the Virtual Portal

Computer Science (31)

This project is developing a software prototype that will make the Alice programming environment an integral part of the Institute for Advanced Education in Geospatial Science’s (IAEGS) Virtual Portal. The Virtual Portal is an intense interactive environment where animations are crucial and virtual communities are the norm. Integrating Alice ? a teaching tool for introductory computing ? into the Virtual Portal makes it possible for students with Web access to use Alice and associated learning materials without the need to install additional software.